Antarctic Master Directory

Following the direction provided by the XVIII Antarctic Treaty Consultative Meeting (1994), the Scientific Committee on Antarctic Research (SCAR) issued a Call for Proposals to Operate an Antarctic Master Directory for a period of at least five years. The International Centre for Antarctic Information and Research (ICAIR) was selected by SCAR and the Committee of National Managers of Antarctic Programs (COMNAP) to establish and operate the Antarctic Master Directory (AMD)on behalf of the various national programs. Using the basic format of NASA's Global Change Master Directory (GCMD) which is part of an existing International Directory Network, ICAIR will design a data model for an Antarctic Data Directory System. An integral component of this model will be development and dissemination of a Directory Interchange Format (DIF) consistent with existing international data networks but expanded to better enable description of data sets that are unique to Antarctic research. ICAIR will also establish links with National Antarctic Data Centers (NADCs), supporting them and other groups collecting Antarctic data, and coordinating the Antarctic DIF with them. The DIF developed will be disseminated to all NADCs for their use in managing Antarctic research data information. The AMD is envisioned as a meta data center with World Wide Web links to the NADCs and serving, at least initially, as a repository for information about the data held by the NADCs.